U.S.-Republic of Korea Cooperative Research: Adsorption and Diffusion of Fluids in Model Porous Media

9302837 Gubbins This award provides funds to permit Dr. Keith E. Gubbins, School of Chemical Engineering, Cornell University, to pursue with Dr. Soong-Hyuck Suh, Department of Chemical Engineering, Keimyung University, and Dr. Soon-Chul Kim, Andong University, Korea, for 24 months, a program of cooperative research on the behavior of fluids in narrow pores and in microporous media using the methods of statistical mechanics and molecular simulation. The objectives of the research are (1) to use several molecular dynamics and Monte Carlo simulation techniques to study the equilibrium and transport properties of simple fluid and their mixtures in porous media having simple geometries, (2) to use these computer experimental results to test recently developed density functional and kinetic theories of fluids in pores, (3) to study networking effects in porous media using molecular dynamics simulation techniques, (4) to study the adsorption and dynamical behavior of water in porous carbons, and (5) to further develop and improve the density functional and kinetic theories for fluids in porous media. Microporous materials are widely used in the chemical, oil and gas, pharmaceutical, and food industries to carry out chemical reactions and for purification and separations. The collaborators expect the proposed work to help them design improved processes and materials for these industries. The collaborators are recognized as experts in the field of the proposal. They will be assisted by several postdoctoral workers and graduate students. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. Korean participation in the project is supported by the Korea Science and Engineering Foundation (KOSEF). Thi s project adds an international cooperative dimension to the PI's research under NSF Grant No. CTS-9122460. ***